Starter Grant: Uncovering the Phylogenetic And Physiological Diversity of Soil Acidobacteria

Bacteria belonging to the phylum Acidobacteria are ubiquitous and abundant in
soil. Despite this, we know very little about soil Acidobacteria; only a small
portion of the genetic diversity within the phylum has been surveyed and the
phylogenetic relationships of acidobacterial taxa have not been adequately resolved. In
addition, the physiological characteristics of Acidobacteria and their ecological roles in
soil remain largely unknown. One major reason for this is that Acidobacteria are poorly
represented in soil culture collections as they are difficult to culture using traditional
culturing strategies. This project has two objectives: 1) to survey and describe the
genetic diversity of soil Acidobacteria, and 2) to improve methods for the cultivation of
soil Acidobacteria in vitro so their physiological characteristics can be assessed. To
meet these objectives, we will collect six distinct soils from across the United States and
build acidobacterial-specific clone libraries from extracted DNA to describe the
phylogenetic diversity of soil Acidobacteria. We will then use a PCR-based screening
approach to identify the specific conditions, or set of conditions, under which
Acidobacteria are most efficiently cultivated from soil. Our goal is to isolate and culture
those Acidobacteria which, from the results of the soil clone libraries, are found to be
numerically abundant in the collected soil samples. Since our previous work suggests
that soil Acidobacteria are strongly oligotrophic, we expect that Acidobacteria can be
most effectively cultured with nutrient-poor media and prolonged incubation times. Once
soil Acidobacteria can be successfully isolated and cultured in vitro, their physiological
characteristics can be assessed in-depth. With this project, we will significantly expand
what we currently know about soil Acidobacteria; we will describe the genetic diversity of
this under-surveyed taxa and, by obtaining pure culture isolates, we can begin to
investigate the ecological roles of soil Acidobacteria. This project will provide a graduate
student with training in both conventional microbiology (strain isolation and cultivation)
and molecular microbiology (rDNA sequence analysis).